Development of an Artificial Intelligence Track in Computer Science

The Department of Mathematics and Computer Science at Pacific Lutheran University will establish an artificial intelligence (AI) laboratory as part of a new AI track in the computer science major. The laboratory will be equipped with four Tektronix 4405 AI development systems. The laboratory will be used in three courses: Artificial Intelligence, Pattern Recognition, and Expert Systems. The AI sequence will provide students with a strong background in the rapidly growing specialty of AI as part of a broader computer science major.